Problems in Potential Theory and Dynamics in Several Complex Variables

This project deals with questions from pluri-potential
theory and dynamics in several complex variables.
Pluri-potential theory is the higher dimensional version
of potential theory in the complex plane. The
investigator plans to study certain classes of
pluricomplex Green functions for the complex
Monge-Ampere operator, from the point of view of their
foliation structure and also in relation to some questions
from algebraic geometry. A second goal of the project is
to consider polynomial estimates of Bernstein-Walsh type
related to graphs of entire transcendental functions.
The investigator plans to study certain properties of
entire functions from this point of view. Such properties
are also of interest in transcendental number theory.
Finally, the investigator is concerned with studying the
dynamics of classes of polynomial automorphisms in
higher dimensions.

Complex analysis in one and in higher dimensions has
important connections with many fields of pure and applied
mathematics and, indeed, with other sciences. It is often
the case that one gains insight about concrete problems
once they are formulated in the context of complex numbers.
This is because of the powerful methods and tools developed
in the study of holomorphic functions in complex analysis.
Studying complex dynamical systems proved to be important
for understanding the behavior of more complicated real
dynamical systems arising in mathematics as well as in
physics and biology.